U.S. - European Summer 2000 Program in Engineering; Paris, France

0080654
Cox

This one-year award supports a summer program abroad for U.S. engineering undergraduate students in aeronautical and aerospace engineering. Embry Riddle Aeronautical University, Virginia Polytechnic Institute and University, and the Ecole d'Ingenieurs in Sceaux, France sponsor the program. U.S. and European students will study engineering practices, theory, problem solving and conduct site visits to several aviation and aerospace engineering firms, such as Dassault, Alcatel, and Renault.
This international summer program has several advantages. Students at an early stage in their careers will develop skills needed to function in a global or multinational corporate environment. U.S. and European practicing engineers and university professors will conduct the classes in approaches to engineering theory, quality control, mathematics and reasoning.